Preliminary Research on Result Synthesis in a Distributed Artificial Intelligence Environment

IRI-9505715 Kiang, Melody Arizona State University $17,999 - 12 mos Preliminary Research on Result Synthesis in a Distributed Artificial Intelligence Environment The goal of this study is to propose a systematic approach to synthesize solutions from a set of heterogeneous intelligent agents with overlapping expertise. A dichotomous classification problem will be examined to demonstrate how multiple inductive agents can work cooperatively to solve a problem. First, a comparative analysis of various inductive methods, including statistical and artificial intelligence (AI) techniques will be conducted. This is followed by an in-depth investigation of how the differences in sample characteristics (i.e., normality, linearity, etc.) affect the performance of each inductive method to establish a foundation for result integration. The concepts and procedures developed in meta-analysis statistics will be used to combine results. The research will facilitate true cooperation in a DAI environment by introducing computational models that promote negotiation through cooperation rather than competition. The incorporation of the models is expected to improve the overall performance and enhance the consistency and validity of a DAI system.